Workshop in the Active Northern Andes

9706110 Williams This project involves a workshop which will bring together a collaborative group of U.S., Colombian and Ecuadorian scientists whose interests involve the regional tectonics, and volcanic processes and hazards in the northern Andes. The focus of the Workshop will be for all involved to learn what research has been done, what resources are available, what are the local logistical concerns and to plan a strategy for future research. ***